The Future of Medicine

THE FUTURE OF MEDICINE The Future of Medicine is a ten part public television series to be produced by WNET/13 for national broadcast in 1991. The series will look at medicine in transition around the would, examining the complex forces shaping its future using a multi-disciplinary approach and illustrating the differences in medicine among different cultures. Explaining the scientific underpinnings of advances in medicine, the series will explore how they are challenging our fundamental definitions of sickness and health, treatment and cure, doctor and patient, life and death. Program topics will include Drugs, Surgery, Prevention, Babies, The Elderly, The Doctor, Learning to Heal, The Hospital, and the Doctor- Patient Relationship. The series will involve rigorous research of topic areas in collaboration with a highly qualified board of scientific advisors. Companion materials including college and high school curricula and trade books will extend the series to additional students and to the general population. The series should be among the most viewed programs on the PBS schedule. NSF support will be leveraged by more than ten times over in support from other governmental agencies, CPB and PBS, and corporate sources.//